Design Task Specification Using Hyperspherical Motion Interpolation

This grant provides funds to develop mathematical techniques and algorithms that integrate the specification of continuous spatial movement with spatial mechanism synthesis theory. Local coordinate frame independence is obtained by interpolation of four dimensional rotations yielding a framework for geometric synthesis methodologies. Virtual Reality techniques will provide the design interface to control the task specification and guide the synthesis process. If successful, this research will provide new capabilities for designers to mechanize general spatial movement using devices of less complexity and cost compared to existing robotic systems. Applications include compact and efficient deployment/stowage devices for the wheelchair bound as well as novel automation systems for manufacturing, office and the home.